RUI: Hole/Exciton Self-Trapping, Defect Formation, and Electron Energy Relaxation Studied with Ultrafast Optical and Electron Techniques

They propose subpicosecond investigations of the lattice relaxation in certain materials when electron-hole pairs are created by linear or nonlinear absorption of light. Techniques to be used are ultrafast optical spectroscopy and short pulse photoelectron spectroscopy. Problems to be investigated (7 in all) include self-trapping of holes in silver halides and in SiO2.